CAREER: Health Information Privacy Protection: System and Social Aspects

The experience of providing or receiving medical care has a very
personal dimension. Quoted from the Hippocratic oath:
"Whatsoever I shall see or hear in the course of my dealings with
men, if it be what should not be published abroad, I will never
divulge, holding such things to be holy secrets". The 1996
Health Insurance Portability and Accountability Act (HIPAA)
required the Administration to issue regulations protecting the
privacy of health information. Such a regulation gives consumers
the right to see, copy, and correct their own health information
and the right of being notified as to how their health
information is going to be used and shared. It also imposes new
restrictions on those who hold health information.
However, legal protection alone is not enough as it can only be
applied after the problem has occurred, when the damage has
already been done. Moreover, law enforcement is usually
expensive, slow, and complex. The goal of this project is to
design a comprehensive technical infrastructure that guarantees
the enforcement of health information privacy protection. The
problem of data protection and privacy is addressed on a
technical level, thus preventing any violation of a privacy
policy in advance rather than correcting it after it has
occurred. The intend of the project is to demonstrate that
health information privacy solutions can be designed to achieve
meaningful benefits without penalizing society with undue
financial burdens or worse, with the compromise of public safety.